SBIR Phase I: Investigation of the use of Chlorine Based Oxidants for Removal of Natural Organic Matter using Advanced Oxidation Processes

This SBIR Phase I project will use a proprietary on-site chlorine/mixed oxidant generator (MIOX) for UV-assisted chemical oxidation of ammonia and natural organic matter (NOM). If chlorine-UV is a feasible advanced oxidation process, then the range of uses for the MIOX process may be greatly extended. The project will address oxidation of organics, including NOM, and the potential reduced formation of disinfection by-products when an Advanced Oxidation Process is used. Disinfection byproducts formation with NOM and its model compounds is an important issue. The project will also address the potential use of sunlight as a UV source, and the effectiveness of short and long wavelength UV.

The broader/commercial impacts of the proposed project will be a proof of feasibility for applications of the MIOX technology to food and beverage processors. If successful, the interest in MIOX technology indicates that broadened applications should be readily accepted by the commercial market.